1990 International Workshop on Defect and Fault Tolerance inVLSI Systems; Grenoble, France; November 5-7, 1990

The 1990 International Workshop on Defect and Fault-Tolerance in VLSI Systems is the 4th in a series of meetings which started with the workshop in "Designing for Yield" held in Oxford in 1987. The workshop is held outside the U.S. every third year. The 1990 meeting is being held in Grenoble, France. It is co-sponsored by the IEEE Technical Committees on Fault-Tolerant Computing and on VLSI and by the IFIP Working Group 10.5. The meeting is an important forum for the dissemination of experimental data and analytical techniques for defect/fault control and tolerance for the manufacture and design of VLSI/WSI systems.